Dissertation Research: Novel Mechanism for Steroid Regulation

Since the early 1960's, it is believed that the primary mechanism by which steroid hormones exert their widespread effects is through the activation of the genome. In hormone responsive cells, such as the brain, the steroids bind to specific protein receptors. These steroid receptor complexes then bind to acceptor sites in the nucleus to alter gene expression. However, the activation of specific genes is too slow to account for some of the observed rapid neurophysiological and behavioral responses to steroids. Recent evidence indicates that the glucocorticoids, stress hormones of the adrenal, directly modulate receptors for GABA, a neurotransmitter that is a potent inhibitor of nerve cell activity. Moreover, Dr. Moore has demonstrated that these stress hormones have a robust and rapid effect on behavior. The doctoral-dissertation research of Miles Orchinik will determine whether the rapid behavioral changes to stress hormones are mediated by their action on GABA receptors. Using sophisticated state-of-the-art techniques, such as radioligand binding, ion flux studies, and quantitative receptor autoradiography, these studies will advance our understanding of how steroid hormones rapidly modify behaviors during periods of stress.